Lie Groups and Geometry

Millson and his collaborators will continue to explore the connections
between the problems of constructing triangles in symmetric spaces and
Euclidean buildings and problems in algebra of interest to representation
theorists. They are especially interested in the relations between the
structure constants of the spherical Hecke ring of a split p-adic group G and
those of the representation ring of the Langlands dual group. The two rings
are isomorphic and have natural bases parametrized by the same semigroup
S (the set of dominant coweights of G). However the isomorphism between
the two rings (the Satake transform) does not carry one natural basis to the
other. The change of basis matrix is triangular and was computed by
Lusztig. Thus it is a natural problem to compare the structure constants
for the same parameter values in S. One of the main theorems obtained by
Kapovich, Leeb and Millson is that if a structure constant for the
representation ring of the Langlands' dual group does not vanish then the
corresponding (ie for the same parameter values) structure constant
of the Hecke ring does not vanish. The converse is true for GL(n)
(by classical work of Hall, Green and Klein) but is false for other groups.
One of the main problems Millson intends to work on is the converse problem
for general G i.e if the structure constant for the Hecke ring is nonzero
what can be said about the corresponding structure constant (or related
structure constants) for the representation ring.

Millson's work began with one of the first theorems of high-school
geometry - the theorem that three positive real numbers a,b,c are the
side-lengths of a triangle in the plane if and only if they satisfy the
"triangle inequalities", that is, each of a,b,c is less than or equal
the sum of the other two. It is a natural problem to try to give conditions
on three isometry classes of geodesic segments in any homogeneous geometry
that are necessary and sufficient in order that one can assemble them into
a triangle. In the case of Euclidean and hyperbolic geometries a geodesic
segment is determined up to isometry by its length and three geodesic
segments can be assembled into a triangle if and only if the three lengths
satisfy the above triangle inequalities. However for many examples (e.g the
noncompact symmetric spaces of rank r larger than 1) geodesic segments are
parametrized up to isometry by elements in a simplicial cone of dimension r.
One should think of a point in this cone as a "vector-valued length". It is a
remarkable fact that there is a system of homogeneous linear inequalities in
a triple of such length vectors that give necessary and sufficient
conditions for assembling three segments with these lengths into a triangle.
Millson and his collaborators call these inequalities the "generalized
triangle inequalities". It is even more remarkable that the generalized
triangle inequalities give conditions that are necessary in order that
certain fundamental algebra problems in the theory of algebraic groups
can be solved. These conditions are almost sufficient as will be made
clear in future work of Millson and his collaborators.